U.S. "Little Science": A Comparative Study of the Content and Context of Laser and High-Temperature Superconductivity Research (History and Philosophy of Science) -- VPW

The investigator proposes to compare two fields of "table- top" science separated by 25 years: lasers in the early 1960s and high-temperature superconductors in the mid-1980s. Focus will be upon continuities and changes in two kinds of behavior: the international relations of the scientific teams, and the changing connections of university teams with industry and government, and the impact of these linkages on the contents of the research. The project should afford significant insights into the nature of modern science, particularly the dichotomization between "big" and "little" science, as well as to the significance of the relations between university teams and other sectors of the research community. It furthers VPW program objectives to provide opportunities for women to advance their careers in science or engineering through research, and to encourage other women to pursue careers in these areas through the investigators' enhanced visibility as role models on the host campuses. In this project, the proposed activities which contribute to the second objective include: teaching three courses over five academic quarters in the history and philosophy of science--two in the history of 19th and 20th century physics and one in U.S. science policy, leading a seminar series in the history of U.S. science policy designed for faculty and graduate students, participating in the physics colloquium, advising students and recruiting some to work on special problems, giving public lectures to make visible female participation in the history of the "hard sciences," an area of scholarship in which women are at present underrepresented, and organizing a symposium on the effect of intersectorial linkages on university research for one of the major societies.